Bioconjugation and Prodrug Activation via Retro-Ene Reactions

Dr. Tianning Diao of New York University is developing new chemical reactions triggered by infrared light—the same low-energy light used in television remote controls. This approach overcomes the limitations of current ultraviolet- and visible-light-triggered reactions, namely phototoxicity to cells and shallow tissue penetration. With this chemistry tool, researchers will be able to study protein dynamics and function, biomolecular interactions, and drug metabolism inside living cells, organs, and in vivo systems. The researchers involved in this program will receive interdisciplinary training in synthetic chemistry and chemical biology, preparing them to drive innovation across the biotechnology, pharmaceutical, commodity chemical, and petroleum industries. Insights from the research will be integrated into the undergraduate curriculum in advanced organic chemistry through lectures, case studies, and problem sets, giving students early exposure to modern tools and concepts. Collectively, these efforts will strengthen the pipeline of students pursuing graduate studies, broaden participation in interdisciplinary science, and highlight the societal impact of fundamental discoveries in chemistry.

The award will support research that addresses long-standing challenges in photoactivated bioconjugation for probing biomolecules in their native environments. Existing photoactivatable methods offer spatiotemporal control but face significant limitations, including the requirement for noncanonical functional groups, cytotoxic heavy-metal catalysts, and high-energy UV or visible light (wavelength < 800 nm), which restricts tissue penetration and increases phototoxicity. This project will develop a retro-ene reaction of diazoniums that selectively conjugates cysteine through disulfide bond formation. The team will then establish the biocompatibility of this chemistry through fluorophore and biotin labeling in live cells and elucidate its reaction mechanism. A second objective will apply the retro-ene reaction as a caging/uncaging strategy for alpha,beta-unsaturated carbonyl warheads, a prominent class of cysteine-targeted covalent inhibitors. Together, these studies will establish a robust, biocompatible, and mechanistically novel platform for infrared-triggered bioconjugation, with broad chemical biology applications.